Acquisition of Upgraded High Performance Multiprocessors forComputational Research in Science and Engineering

9724289 Rahman, Talat Kansas State University Acquisition of Upgraded High Performance Multiprocessors for Computational Research in Science and Engineering Kansas State University is acquiring a multi-processor computing facility with shared memory, together with a visualization workstation to support large computation needs in biochemistry, chemistry, physics and engineering. All the research projects have the common theme of high performance computing applied to the simulation of physical, chemical, or biological systems. Specific research topics include modeling of novel materials and macromolecules, computational atomic and molecular structure and collisions, computational fluid dynamics, and engineering software for parallel scientific applications. The computational and visualization facilities will be available for training graduate students in computational modeling and visualization. Kansas State envisages that the new facility will play an important role in their existing recruitment programs designed to attract minorities and women to graduate programs in the physical, biological and engineering sciences.